Genetic Drift and Gene Flow in Post-Famine Ireland

The objective of this proposal is to determine the differential effects of the evolutionary forces of drift and migration on patterns of biological variation in Ireland resulting from demographic shifts following the Great Famine of the 1840s. This project will provide insight into human evolution and variation from a unique perspective afforded by several generations of data. This project will also provide general information on the effects of changes in population size and migration on human genetic variation. Physical anthropologists are interested in the relationship of evolutionary process with cultural and demographic changes. The Irish Famine of the 1840s resulted in major demographic shifts, including a rapid reduction in population size that persisted through the early 20th century and an increase in migration between depopulated regions. These rapid changes could increase genetic differentiation through drift (random genetic change) or decrease it through migration (gene flow). The opposing forces of drift and gene flow have been studied in numerous human populations to date, but almost always at one point in time. Using extensive physical and demographic data from Ireland (originally collected in a survey during the 1930s), the PI will be able to examine these changes over at least three generations of people born after the Famine. The results from this study will provide a unique perspective on the process of human microevolution by examining genetic changes over several generations (such data are rare in human studies).